Single-Quantum Annihilation of Positrons and Associated Phenomena

Professor Palathingal will undertake the investigation of single quantum annihilation of positrons, using the Dynamitron facility of the Brookhaven National Laboratory. Differential cross sections will be measured with enhanced precision for the core electron shells, employing thin targets of varied atomic number.